Modeling Langrangian Displacement of Watermasses in the DeepEquatorial Ocean

This project is an investigation of the Lagrangian displacement of water masses in the deep equatorial Atlantic Ocean using both analytical and numerical approaches. Two numerical models are used: a reduced gravity shallow water model, and the GDFL ocean general circulation model. The main scientific goals are (1) identification of dominant mechanisms for generating wave transients and how can these transients affect Lagrangian displacement of water masses and, (2) analysis of effects of bottom topography and shoreline geometry on the Lagrangian equatorial transport.